A Universal Microprocessor Development System for Engineering Students

Oregon Institute of Technology will purchase ten microprocessor development systems for students taking microprocessor and senior project courses. The system includes an IBM PC-AT computer engine, a universal microprocessor emulator, software, and a printer. The universal microprocessor emulator was chosen to obtain maximum flexibility in choosing the microprocessors to be emulated. The unit allows changing microprocessors without having to change emulators or computer engines. With the acquisition of the ten development systems, the microprocessor and senior project instruction will be compatible with contemporary practices of industry.